Engineering Research Equipment Grant: Experiemtal Research Facility for Ultrasonic Nondestructive Evaluation of Structural Materials

This research equipment award is made to partially fund the purchase of ultrasonic apparatus for the nondestructive evaluation of structural materials. This will permit theoretical models of wave propagation in structural members to be compared with experimental results.